Acoustic Transmission of Video Images from the Ocean Bottom

This project explores the possibility of an acoustic transmission system to enable real- time monitoring of remote ocean bottom sites with video images from untethered vehicles. The key issue is matching the image transmission rate and image quality to the capabilities of the acoustic telemetry links, while preserving the salient image qualities which make the information useful to the scientist or vehicle controller. We will develop an integrated video compression and acoustic telemetry system to allow an AUV to perform tasks such as a rapid search of an area, closer examination for object classification, and finally, transmission of archival quality images for detail study and documentation. The project will also investigate user feedback to the remote camera, involving issues such as strobe control, image quality adjustment, and vehicle position. We propose to integrate the process into an adaptive video protocol designed explicitly for remote AUVs. The protocol will be optimized for issues such as long propagation delays inherent in acoustic telemetry and limited information bandwidth. An important goal is matching the compression algorithms to the actual, science-driven requirements encountered when using AUVs for scientific observation.